AF: Small: Collaborative Research: Making Computational Geometry Polynomial in Derivation Length and in Dimension

Computational geometry is the discipline that creates algorithms to
design and manipulate shapes. It has wide application in science,
engineering, and industry -- CAD/CAM systems are a notable example.
The problem is, where we see shapes and their spatial relations, the
computer sees only numbers -- and usually, for speed, only
approximate, "floating-point" numbers. E.g., points on a line that
are represented as numerical coordinates, when rounded to the
number of digits the computer stores, may no longer lie on any common
line. Subsequent calculations that rely on a line being straight or
two lines intersecting at most once can then go badly astray. Error
in numerical computation can sometimes be limited by rounding, but
there is no practical technique for rounding three-dimensional shapes.

This project investigates shape rounding by encasement:
High-complexity shapes are encased in approximating polyhedra with
floating-point vertex coordinates. Given an encasement, the PIs have
described a rounding algorithm that projects input features to nearby
encasement features. For dealing with intersections of surfaces, the
project creates output-sensitive algorithms for another type of
encasement, an isolating encasement that can have distant boundary
vertices but cannot encase other features.

Encasement is only part of the solution, so the project also explores
ways to compute topological structure using bounded-complexity
arithmetic by avoiding numerical computation for the degenerate (zero)
expressions. It investigates using graph theory to analyze explicit
expressions and algebraic techniques to analyze expressions involving
roots of polynomials.

The outcome is to include a software library for implementing
computational geometry algorithms with automated shape rounding. The
project integrates education and research through an introductory
computational geometry course in which standard algorithms are taught
and implemented using the library. Previously, the computational cost
of multi-step algorithms forced students to consider each algorithm in
isolation.